Mathematical Sciences: Dynamical Systems, Geometry, and Quasiconformal Homeomorphisms

The Principal Investigator will continue his study of dynamical systems in one real, or one complex variable. He will investigate structural changes as one real parameter is varied. Renormalization group methods will be used to develop a theoretical understanding of several computer-generated discoveries. Infinite bifurcations will be studied via quasiconformal deformations. As energy is added to many mechanical devices, the system begins to oscillate. As the energy is increased further, many nonlinear yet simple devices double their oscillation frequency. Still more energy results in another doubling. This succession of frequency doubling "bifurcations" continues as more energy is added until, just past the Feigenbaum limit, the system goes chaotic. The Principal Investigator will build on his mathematical theory which explains exactly how such frequency doubling evolves at the onset of chaos.